Development of Large Scale Manipulator Technology for Construction

9302222 Haas The work envisioned will extend the manipulator machine's capabilities and utility by demonstrating feasibility for more general material handling applications involving truck loading and unloading and steel erection. The incorporation of additional control system features should allow for use of the manipulator in a teach-learning mode which would reduce the requirement for operator attention during routine repetitive operations and allow demonstration of the task and path planning demonstrated in the simulation studies already completed. In achieving these objectives, fundamental knowledge about extending the functionality of large scale manipulators in construction will be possible.